Floer for Three: Symplectic Methods in Low-Dimensional Topology

Research under this grant furthers our understanding of curves, surfaces, 3-dimensional spaces, and 4-dimensional spaces, by focusing on the interplay between these different dimensions. Relationships between different dimensions arise in two ways. One way to study complicated 3- or 4-dimensional spaces is to decompose them into simpler pieces; the decomposition happens along lower-dimensional spaces, like surfaces. These are complicated versions of the principle that you cut a 3-dimensional watermelon by using a flat, 2-dimensional knife. Trying to do this leads one to ask in which ways low-dimensional spaces can sit inside high-dimensional ones. For example, 1-dimensional shoelaces can be knotted or unknotted; it was recently discovered that a 3-dimensional watermelon sitting in 4-space can also be knotted. This involves developing aspects of differential equations and abstract algebra. One long-term goal of the research project is to have a computer program that can compute certain subtle invariants of 4-dimensional spaces coming from counting solutions to differential equations from theoretical physics, the Seiberg-Witten equations. The grant will also support training graduate students in these topics, writing a book introducing some of them to graduate students and advanced undergraduates, outreach activities to share the excitement of geometry and topology with K-12 students, and a website to help other researchers use non-photorealistic raytracing to draw useful figures in their own papers.

The research involves a number of specific projects. One is to further develop an extension of bordered Heegaard Floer homology to the "minus" version of Heegaard Floer homology. Bordered Heegaard Floer homology is a version of Heegaard Floer homology for 3-manifolds with boundary; many aspects of the theory are currently only defined for the simpler "hat" version of Heegaard Floer homology. Another is to develop new invariants of embedded non-orientable surfaces in 4-space, using variants on Khovanov homology. A third is to apply Floer homotopy theory to questions in equivariant 3-dimensional topology, and a fourth is to study relationships between Floer homology and the mapping class groups of surfaces.